Determination of Coherency Strain Fields in a Quenched and Aged Copper-Beryllium-Cobalt

This research is aimed at understanding more fully the effects of strain fields on the mechanisms of strengthening in two-phase materials. The program is exploring coherency strain fields that develop in two-phase metal alloys during aging. X- ray diffuse scattering is employed to determine the magnitude of the strain fields. Transmission electron microscopy permits a correlation of microstructure with the strain fields and hardness measurements. Tweed contrast is examined using an extended theory for coherency fields.